A Curriculum for Security Assured Information Systems

This project develops and implements a Security Assured Information Systems (SAIS) track in the Information Science (BS, MS, Ph.D.) and Telecommunications degrees (M.S. and Ph.D.) offered by the University of Pittsburgh. This track provides a unique education in the development, design and deployment of secure information systems with an emphasis on networked information systems. The goal is to produce IT professionals with the knowledge to cope with the special security challenges (e.g., intrusion detection) posed by conventional and emerging network information systems (e.g., wireless local area networks) and their applications and services. The SAIS tracks consist of a set of required and elective coursework together with a practicum/capstone course. A core component of the coursework is a set of innovative laboratory exercises and classroom experiments that illustrate theoretical concepts and technologies and provide students hands on experience.